PYI: Flow Control and Routing in High Speed Networks

The research area that this principal investigator (PI) will focus on during his Presidential Young Investigator award is the control and management of information flow in communication networks. The focus will be on overcoming the bottlenecks of switching and network processing that result from using optical transmission and electronic devices. Processing bottlenecks may arise in network protocols. The PI plans to develop analysis techniques for evaluating performance of higher level protocols using, for example, a non-statistical approach to predict worst case performance. To address the switching bottleneck, the PI plans to synthesize and investigate the performance of switching architectures which utilize massively parallel processing and the benefits of spatial statistical multiplexing and deflection routing.